Theoretical and Experimental Investigation of Low-temperature Magnetic Phase Transitions and Application to Paleomagnetism

9814396
Tauxe

Low-temperature magnetic measurements are increasingly used in applications of rock magnetism to studies of plate tectonics, the history of the Earth's magnetic field and global environmental change. These measurements make use of phase transitions that occur below room temperature in some magnetic minerals. The investigators will develop the first quantitative theory for changes in magnetic remanence across phase transitions. The theoretical work will place strong constraints on possible mechanisms for pseudo-single-domain remanence and acquisition of thermoremanent magnetization. Combining theoretical and experimental work, the investigators will use low temperature demagnetization to improve paleointensity measurements and provide a physical interpretation of remagnetization in Paleozoic carbonates.